Factorization of Birational Maps

The main goal of the proposed project is to study the strong factorization
conjecture for birational morphisms: every proper birational morphism
between nonsingular complex varieties can be factored as a
composition of smooth blowups followed by a composition of smooth
blowdowns. The conjecture follows from the more
fundamental problem of making a morphism toroidal by smooth
blowups. There are several approaches to solving the toroidalization
problem, for example, reducing it to a problem about resolution of
singularities of a differential form with logarithmic poles, or using
a composition of several constructions in lower dimensions to achieve
toroidalization in higher dimension.

The main theme of the proposed research is to study the classification
of algebraic varieties. More precisely, given two varieties that are
the same generically (they are the same after removing some small
subsets), can one transform one variety to another by some elementary
operations? The simplest elementary operations are blowups and
blowdowns of subvarieties: replacing a subvariety by another
subvariety of larger (resp. smaller) dimension. The blowup-blowdown
conjecture states that one can always get from the first variety to
the second by blowing up several times and then blowing down.